Cooperative Agreement: Research in Processing Technology

The principal investigators will establish a manufacturing research, development and implementation organization to perform basic research, advanced development and pilot scale implementation of new materials processing technology in cooperation with and with the support of United States industry. The work includes the establishment of a multi-investigator organization which is supported jointly by government and industry. The initial focus of the research will be on materials and manufacturing process innovations for rapid response manufacturing with enhanced performance and reduced cost. Specific activities will include the development of implementable manufacturing technologies in the areas of adaptive sheet metal forming, three- dimensional printing, high rate material removal via three- dimensional laser machining, microcellular plastics processing and metal matrix composites processing.